Gauge Theoretic Invariance and Applications to an Enumerative Geometry and Low-dimensional Topology

Abstract Proposal: DMS-9802612 Principal Investigator: Jim Bryan This project investigates topological and geometric invariants that are related to, and sometimes inspired by, dualities that arise in physics in string theory. Of primary interest are versions of the Gromov-Witten and Seiberg-Witten invariants for families of symplectic structures. Bryan's project will apply these invariants to various problems in enumerative algebraic geometry, symplectic geometry, and low-dimensional topology. Specifically, he will use his techniques to solve large classes of enumerative problems for K3 surfaces, Abelian varieties and other elliptic surfaces. He will extend these techniques to compute Gromov-Witten invariants for higher dimensional varieties in order to verify predictions made by mirror symmetry. He will use Seiberg-Witten theory for families to investigate the extent to which the K3 surface is characterized by its twistor family. He will extend his techniques developed in earlier work for studying cyclic group actions on 4-manifolds using Seiberg-Witten theory. The extended techniques should apply to other groups, to 3-manifolds, and to real structures on algebraic surfaces. Recent progress made by theoretical physicists in super-symmetric string theories have led to many intriguing and largely conjectural interconnections between very different aspects of geometry and topology. Bryan's project will elucidate some of the geometry that underlies these physical theories; physicists hope super-symmetric string theory will eventually give a complete theory of the universe.